Far East Visits and China Tribology Conference, to be held October 6-24, 1993, Beijing, China

9318367 Tichy Travel support is provided for a group of US tribologists to attend the International Symposium on Tribology in Beijing, China, during October of 1993 and to also make site visits to South Korean and Chinese research institutes. The group will develop an assessment of the status of tribology research in the region and explore the opportunities for continued and expanded cooperative research activities. *** ~ 9318367 Tichy Travel support is provided for a group of US tribologists to attend the International Symposium on Tribology in - 3 ( - ! ! F - 3 - ; Times New Roman Symbol & Arial Tms Rmn " Helv QMS-PS 820 LPT2: pscript QMS-PS 820 U D o d , X Z e Z h t e t e % jina reed jina reed